Biological Clocks and Social Organization Symposium Meeting Dates: July 3 through 8, 2022 in San Diego, CA.

This symposium focuses on biological clocks and social behavior in social insects and takes place at the 2022 International Union for the Study of Social Insects (IUSSI), in San Diego, California. Invited presenters will bring together information on distinct technologies and insights as related to biological clocks and how they interact with social behavior. This symposium, and IUSSI, presents a unique opportunity to bring researchers together to facilitate synergy, professional development, future research collaborations, and a better understanding of the economically important social insects. Presenters represent a broad range of career stages and fields and there is strong participation of individuals from groups traditionally underrepresented in STEM fields. Undergraduate students will also attend the IUSSI providing a valuable early career experience.

Biological clocks organize aspects of life at different levels of biological organization. Participants in this symposium and the focused meetings around this symposium will help form a deeper understanding of social insects, social behavior, and biological clocks potentially leading to new frontiers of research and understanding. Also, of interest and focus here is seasonal timing of behavior and how the adaptive nature of seasonal behaviors could be impacted by climate changes. Planned publications will share the synergistic outcomes of the symposium.